CISE Research Infrastructure: A Laboratory for Research in High Performance Distributed Computing

9502645 Truszczynski This award provides support for the acquisition of a high-performance distributed cluster-based computing system consisting of a number of high-performance multiprocessor workstations interconnected by a high-speed LAN. These LAN-connected clusters will themselves be interconnected by a high-speed ATM backbone network. The Computer Science department will thus build a distributed multicomputer based on a scalable, distributed shared memory paradigm which will facilitate the department s research efforts in distributed and parallel computing, distributed multimedia, vision and scientific computation, and distributed control for manufacturing.